Conference Support for the 9th International Meeting on Light and Color in Nature; Bozeman, Montana; June 25-29, 2007

This project provides funds to assist researchers and students from U.S. institutions and organizations to attend the 9th International Meeting on Light and Color in Nature. The meeting will be held in Bozeman, Montana, over the period June 25-29, 2007. Priority will be given to researchers without other funding to support their travel, especially younger researchers and students, and to enhancing the diversity of the participants.